Coherence and Fluctuations in Light-Matter Interactions (Physics)

Experimental studies of coherence and fluctuation phenomena in lasers and nonlinear optical interactions of light matter will continue. Studies of the laser with a saturable absorber will study fluctuation phenomena in light-matter interactions. A new component to the project has been added to study instabilities and fluctuations in nonlinear optical processes. These studies will be carried out in the processes of sub/second harmonic generation with the emphasis on the quantum statistical properties of the electromagnetic field. These experiments will probe novel regimes of operation of nonequilibrium systems and will lay the groundwork for future studies of the interaction of simple atomic systems with quantum states of light.